EARS: Modeling and Analysis of Radar / Communications Spectrum Sharing Opportunities

This research effort focuses on the impact that 4G/LTE wireless devices (e.g. cell towers and smart phones) may have on radar altimeters operating in the 4200-4400 MHz spectral band. Based on the identification of this band by the government as a potential candidate for commercial cellular use, the spectral characteristics and potential impact to the operation of these airplane landing radars has become extremely important to a broad audience. The recent crash of the Asiana Airlines flight has added to the focus on the operation of these radars.

To obtain this understanding, a significant spectrum measurement campaign will be undertaken focused on appropriate radar altimeter systems and on 4G/LTE systems. The measurements will quantify the effects of 4G/LTE on radar altimeter performance using actual and/or simulated equipment. These measurement results will provide a basis for performing the detailed analysis work required to gauge the level of impact that would be expected under a variety of conditions. This information will need to be quickly and effectively disseminated to others in the wireless research community and importantly to various decision-makers in the telecommunications policy realm.